Research in geometric group theory

Three rather ambitious projects are proposed in the area of geometric
group theory. The first is inspired by Zlil Sela's geometric solution
of Tarski's logic problem. The PI and Mladen Bestvina plan to complete
their program to solve by geometric means two forty-year-old problems
of Mal'cev. They also propose to generalize their methods and provide
an alternate proof to the Tarski problem. The second project, joint
with Michael Handel, is to solve the conjugacy problem for the outer
automorphism group Out(F) of a free group F. Much of the research in
this area is driven by the similarities between linear groups, surface
mapping class groups, and Out(F). The conjugacy problem has been
solved for these other two classes. The final project, again joint
with Mladen Bestvina, is to better understand the geometry of outer
automorphism groups of free groups. In particular, it is proposed to show
that a complex analogous to the curve complex in the mapping class
group setting is word hyperbolic.

Three projects are proposed in the area of geometric group
theory. Geometric group theory is a relatively young branch of
mathematics in which problems from other areas of mathematics are
reformulated and then solved in geometric terms. This approach has
been successful in areas that are sometimes viewed as distant from
geometry. For example, Zlil Sela used geometric methods to solve an
old logic problem of Tarski. Inspired by Sela's methods, the PI and
Mladen Bestvina propose to solve two old logic problems of
Mal'cev. Group theory is another area where these methods have been
particularly successful. Groups are ubiquitous in math and the
sciences. The set of symmetries of a molecule is an example. There is
an important class of groups called "free groups" from which all other
groups can be constructed. The set of symmetries of a free group F is
another important group, denoted Out(F), which has been the subject of
much current interest. The PI proposes two other projects focusing on
Out(F). In one, he and Michael Handel propose to solve an old and
fundamental problem on Out(F), namely that its conjugacy problem is
solvable. In the other project, the PI and Bestvina propose to better
understand the intrinsic geometry of Out(F).